Engineering Research Equipment Grant: Equipment for RF Measurements

This Engineering Research Equipment Grant is for the purchase of a network analyzer system (Hewlett Packard 8510B) to support current research by the Department of Electrical Engineering at the University of Mississippi on three specific projects, and it will be used by all the staff to broaden the scope and quality of their research activities. The requirement for the proposed network analyzer system, which has already become an industry standard, has been necessitated by the need to improve measurement accuracy required for verification through measurements related current research on analytic and numerical solution of EM boundary-value problems, because existing equipment is obsolete. The equipment will facilitate research in the specific areas of 1) cavity method for measurement of material properties - an investigation to improve accuracy and error estimates in measurements of dielectric constant and surface conductivity, 2) antennas embedded in lossy media - an experimental study of wires inclined to an air-lossy media interface to verify a well-known numerical analysis program, and 3) dielectric radiating elements - an investigation of non-metallic radiating elements for microwave and millimeter wave applications. Auxiliary uses for related network analyzer measurements are in the areas of new antenna feeding techniques, phased arrays, and cavity measurements using the resonance method for dielectric in rectangular waveguide.